Research Initiation: Computer-Aided Spatial Modeling of Buildings Using Database Dependency Rules

The research explores the potential of a computer-aided modeling tool that allows the building designer and analyst to explicitly specify the spatial relationships between objects. The modeling tool would consist of a set of geometric objects, a set of primitive operations on the objects, and a language for expressing spatial relationships between objects. The environment to support this model would consist of a database that stores not only the information that describes individual building elements, but stores the dependency rules for maintaining spatial relationships between components. A set of useful spatial relationships (for example, interferences, tolerances, parallel surfaces, and relative orientations) for both design and analysis will be identified. Alternate implementation strategies include a relational database and a non-procedural language.